A Precision Measurement of the Polarization of the 2.7K Cosmic Microwave Background Radiation

ABSTRACT 9318727 Timbie Recent measurements of the spectrum and the spatial anisotropy of the 2.7K Cosmic Microwave Background Radiation (CMBR) have dramatically improved our understanding of the early universe. The third characteristic of this radiation, its polarization, has not been measured as precisely. The amplitude of the linear polarization and its angular coherence length are extremely sensitive to both the source of anisotropy (density perturbations or gravitational waves) and the ionization history of the universe. The predicted polarization amplitude is 10% of the size of the COBE/DMR anisotropy signals at 7, or T/T110-6. This grant will support o perform the first measurements optimized for this angular scale and smaller. It will use new receiver technology with 100 times more sensitivity than previous polarization experiments, as well as a novel instrument design. It is expected to reach a factor of about 100 below present upper limits at this scale. An improved upper limit, or detection of polarization will help to: determine whether the large-scale anisotrophies were generated by density perturbations or by gravitational waves determine if recombination was instantaneous determine the redshift of reionization study the correlation of anisotropy with polarization constrain possible alternative sources of polarization of the CMBR such as axions, cosmic strings, and textures The project will measure CMBR polarization, first at large angular scales (7) and later at smaller scales (1). Two novel polarimeters optimized specifically for both measurements are being constructed. They will operate at two different millimeter wavelengths to reject foreground emission from synchrotron radiation and feature strictly- controlled systematic effects and the high sensitivity required to reach the expected signal level. ***